Assessment of Maui Community College's STEM Programs and Their Efficady for Native Hawaiian Students

With National Science Foundation support, the University of Hawaii Manoa - Maui Community College will conduct a comprehensive self-assessment of current and planned science, technology, engineering and mathematics (STEM) programs. The assessment includes a review of the existing STEM instructional infrastructure, curriculum, faculty professional development opportunities, technology used for instruction, high school to college transition programs, community service, and Native Hawaiian student retention and success in STEM fields.

Assessment outcomes will support the development of a strategic plan to strengthen Maui Community College STEM programs to better meet the needs of the community and specifically, the Native Hawaiian population.